Scheduling Support for High Performance Clusters

Clusters are becoming a predominant and cost-effective platform
for high performance parallel computing. These systems are gaining acceptance
not just for scientific applications, which have traditionally needed
supercomputers, but are also being deployed to meet the needs of
applications in domains such as databases, web service, multimedia, and
graphics/visualization. Traditional parallel scheduling techniques
such as simple space sharing or coscheduling, which are optimized more
for throughput, may not be able to handle the responsiveness needs of
these emerging applications. At the same time, leaving it entirely
to the native operating system scheduler at each node to make independent
decisions can have a detrimental effect on the performance of communicating
applications. Considering these different issues, this proposal will
explore techniques for efficient management and coordination of the
CPU resources across the nodes of a cluster. This research will develop
a framework to design cluster scheduling mechanisms taking communication
into account together with working sets and I/O information, accomodate
the constraints and idiosyncrasies of an application, and adapt dynamically
to the system load. The mechanisms will be evaluated with real workloads,
using simulation, analytical models and actual implementations.
The outcome of this research will take an important step towards making
clusters more ubiquitous, multiprogrammed, manageable and user-friendly.